GISP2 Major Ions - History and Cause(s) of Climate Change

9321428 Mayewski This award is for support to provide a high resolution paleoenvironmental record of major anions and cations in the Greenland Ice Sheet Program Two (GISP2) ice core. The parameters to be measured include choride, nitrate, sulfate, sodium, calcium, magnesium, potassium and ammonium. The high quality, continuous, high resolution multivariate chemical series will be combined with mathematical and statistical techniques in order to examine the history and understand the causes of climate change. This work will allow the characterization of the fundamental connections among the glaciochemical signals and the other parameters measured in the GISP2 core and will permit a comparison with other ice core records, instrumental records and other proxy records. This study will also allow for the interpretation of changes in the sources and production rates of the chemical species recorded in the GISP2 ice and will permit an investigation into the causes of climate change on a variety of time scales. ***